Paraproducts With Flag Singularities

DMS - 0355360
Camil Muscalu
Cornell University

Paraproducts with Flag Singularities

Abstract

Over the last few years we have been working on developing further
the theory of multilinear singular integrals and their Carleson-type
maximal analogs, in connection with the spectral theory of one-dimensional
Schroedinger operators. We understood many of its beautiful features, but
still much more work needs to be done

The present Project is focused on creating a consistent multi-parameter
theory for these multilinear operators. The motivation for such a study
is not only our previous work, but also the desire of analysts
of having a general Kato-Ponce theory, so useful in PDE.
Some of these operators have a very special multi-parameter
structure not seen among the previously studied operators in
harmonic analysis. Understanding their combinatorics is a deep and
challenging study. Our plan is to handle not only large classes of
such paraproducts with "flag singularities", but also "analytic series"
of such operators. We believe that these new techniques will have a broad
impact to several problems in nonlinear analysis.